Few-Level Models in Atomic Radiation Theory

Research on the interaction of few-level atoms with the radiation field proceeds in four directions; construction of non-spreading wave packets, control of non-classical photon states, correlated pulse propagation and pulse-induced evolution.